19th Annual Workshop on Automorphic Forms and Related Topics

This grant will support the "19th Annual Workshop on Automorphic Forms
and Related Topics." The workshop has become internationally recognized
for its high-quality research talks and also for its supportive
atmosphere. Participants will present research in areas related to
automorphic forms, including Maass wave forms, elliptic curves, Siegel
and Jacobi modular forms, special values of L-functions, random
matrices, quadratic forms, computation and applications of modular
forms, etc. Moreover, the workshop provides an excellent opportunity (in
particular for junior researchers) to start new collaborations and
strengthen existing collaborations.

In addition to research talks, this workshop will feature discussion
sessions, facilitated by experts, on the following topics: Attracting
Students to Mathematics; Crafting a Long Term Research Program. These
discussion sessions will result in a written report to be posted on the
American Institute for Mathematics (AIM) website as a living document.
This will provide a lasting benefit to participants, as well as to their
future students and colleagues.

Tie Luo
Program Director
Algebra, Number Theory, and Combinatorics